Program to Expand the Scientific Capacity in the Americas (PESCA)

The proposed PESCA program will amplify the reach of existing IAI projects and programs: the Initial Science Program (ISP) and the Collaborative Research Network (CRN). PESCA will involve countries now not adequately involved in IAI program/project activities by involving participating scientists from these countries as full partners in the projects, participating as CoPIs.

As determined by the IAI's merit based peer review system, the following potential awardees have been identified (awards to Cuba are subject to pending OFAC licensing):

Ricardo Herrera-Peraza, Cuba: "The effects of global change on the diversity of vegetation and edaphic microbiota on insular and continental ecosystems"

Michael Taylor, University of the West Indies-Mona Campus, Jamaica: "When oceans conspire: Examining the effect of concurrent SST Anomalies in the Tropical Atlantic and Pacific on Caribbean Rainfall"

Rodolpho Rodriguez, Antonio Mabres, Ronald Woodman, Universidad de Piura, Peru: "Dendrochronological Studies of El Nino and other climatological variations of the South American Tropical Zone"

Antony Chen, University of the West Indies-Mona Campus, Jamaica "Analyzing and understanding climate variability in the Caribbean Islands"

Pedro Cisneros, A. Amarakoon, ESPOL, Ecuador /UWI-Mona, Jamaica: "Predicting ENSO effects on sugar cane yields using a weather-generator and mechanistic crop modeling"

Gabriela Eguren, Claudia Rodriguez, Beatriz Costa, Alice Altesor, Universidad de la Republica,Uruguay: "Impact of forestry on Uruguayan grasslands: changes in landuse patterns and ecosystem functioning"

Lelys Bravo, Bruno Sanso, Universidad Simon Bolivar, Venezuela: "Downscaling activities and their applications of studies of climate variability and change in South America"

Alejandro Leon,FLACSO, Chile: "An inventory of Disasters in Chile, ENSO and non-ENSO related: A La Red-Chile Project"

Juan Carlos Antuna, Instituto de Meteorologia, Cuba: "Characterization of stratospheric and upper tropospheric aerosols over Central and South America"

Oscar Betancourt, Marc Lucotte, Marc Roulet, Ecuador / Canada: "Mercury in Andean Amazon river catchments - MAARC Project "

Ida Mitrani, Instituto de Meteorologia, Cuba: "High resolution numerical modeling of local and regional atmospheric circulation in the Caribbean"